The Enhancement of Heat Transfer by Thermoacoustic Convection

Theoretical predictions indicate that a pressure wave of low amplitude will be generated by the sudden onset of heat transfer from a surface to a compressible fluid. The energy exchange that results from this thermoacoustic wave and its subsequent surface reflections provides a mechanism for energy transport to both the fluid and the cooled surface. This heat transfer enhancement mechanism will be experimentally quantified by pressure and thermal measurements. No prior experimental work has been identified on these enhancement phenomena. Analytical work on this heat transfer enhancement indicates that the resultant energy transport will be many times that of simple conduction. This research seeks to experimentally confirm and quantify this unexplored phenomena.